CISE Research Instrumentation: Prototype development of the Simultaneous Optical Multiprocessor Exchange Bus computer

EIA-9985971
Constantine Katsinis
Drexel University

CISE Research Instrumentation: Prototype Development of the Simultaneous Optical Multiprocessor Exchange Bus Computer

The Department of Electrical and Computer Engineering at Drexel University will purchase digital design and test equipment, optical design and test equipment processor boards, programmable logic design equipment, software, and personal computers to support programming, designing, testing and debugging activities. The focus of this research is on the Simultaneous Optical Multiprocessor Exchange Bus (SOME-Bus) computer network architecture. Work on the SOME-Bus involves multidisciplinary research in computer architecture and networks, optoelectronic devices, fault tolerance, performance analysis (mathematical modeling and simulation), and VLSI design. Its purpose is to create an optoelectronic prototype of the SOME-Bus, a research platform that will demonstrate the enhanced performance necessary to support current and future data processing and scientific processing requirements. The equipment will be used for several research projects, in particular:

1. Prototype development of the SOME-Bus computer network architecture.
2. High-sensitivity high-bandwidth detectors based on heterodimensional contacts.